Presidential Young Investigator Award

Principal Investigator proposed to do research in the following areas: 1. Structural dynamic analysis of pressure vessels (shells) to mechanical overpressures and intense heat flux loadings, including computer modeling of cumulative damage of shell walls due to cyclic pressure loadings, 2. Mechanical and thermal stress analysis of reactor components for fission safety, 3. The mechanical modeling of x-ray lithography masks.